MRI/RUI- Aquisition of a Mass Spectrometer for Undergraduate Research

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Richmond will acquire a liquid chromatograph/mass spectrometer (LC/MS). This equipment will enhance research in a number of areas including a) characterization of small molecules prepared in organic, inorganic, and organometallic synthetic studies; and b) structure elucidation of small- to medium-sized biomolecules in biochemical studies.

Liquid chromatography with mass spectrometric detection (LC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at the University of Richmond, a primarily undergraduate institution. These studies will have a solid impact in the area of synthetic chemistry and biochemistry.